Gel-Processing as a Route to High Performance Oriented Electronic and Optical Polymer Materials: Design and Synthesis on the Supramolecular Length Scale

This award is for the renewal of research previously supported under a Materials Research Group grant (DMR 8703399) at the University of California - Santa Barbara. The research of the group focuses on the design and synthesis on the supermolecular length scale of multi-functional, high performance electronic and optical polymer blends using gel processing. The morphology of these gels is being determined using x-ray diffraction, optical, scanning, and electron microscopy, mechanical, and electrical measurements, optical spectroscopy, luminescence, and photo-induced absorption. Polymers being investigated include ultra-high molecular weight polyethylene, polyvinyl alcohol, polyacrylonitrile, unblended conjugated polymer systems, and phase-segregated highly oriented polymer blends such as polyaniline/poly(p-phenylene terephthalamide). Materials are being processed into fibers, thin films, and conducting foams taking care to control the morphology, phase stability, and spinodal decomposition. The research is multi-disciplinary, combining condensed matter physics, synthetic chemistry, theory, and polymer science. This grant provides the ideal mechanism to train students to synthesize, process and characterize polymers, with the interaction of all of the scientific approaches and methods used to study polymers.